The Archaeology of Honduras (REU Supplement)

Dr. Joyce and her associates will conduct archaeological research in the Oloman and Cataguana Valleys located in northeast Honduras. Previous work has indicated the presence of materials which date to the Late Formative and Classic periods but no detailed work has been conducted. Dr. Joyce and her team will use areal photographs to locate probable sites. During a first field trip they will make necessary government and scientific contacts in Honduras, find a location for a field headquarters and establish a logistic system. Finally, during a second field season they will survey promising areas identified from the photographs and surface collect ceramics and other cultural materials. On this basis they will then plan a full scale project. Northeast Honduras appears to mark the boundary of the prehistoric Mayan empire. Mayanist archaeologists who wish to trace the rise and decline of this entity want to know where boundaries were established and how they changed over time. Dr. Joyce's project will help to answer this question. It will also address the dynamics of so-called "marginal" regions. Some archaeologists think these can best be understood in terms of relations with core areas, while others argue that such regions are best viewed in their own terms. Dr.Joyce's work will also address this issue.